Kaon Decays and Phi-Factory Physics

This award will support collaborative research by Professor Thompson and scientists at the Budker Institute of Nuclear Physics at Novosibirsk, USSR. Professor Thompson will study the decays of the phi-meson into pairs of K-mesons. These decays are sensitive to the origins of CP-violation in quark decay.